Mixed Phase Spaces: Templates for Quantum Manipulation

0099431
Sundaram
Classical intuition plays a crucial role in the analysis of a wide variety of complex quantum mechanical phenomena. The proposed research continues the PI's work in extending this intuition to include nonlinear systems exhibiting chaotic dynamics. In particular, the study would emphasize the use of classical analyses to facilitate control of the corresponding quantum dynamics. The research is largely motivated by recent experimental realizations of mesoscale phenomena, particularly in the contexts of cold atom optics and nanostructures.